Electromagnetic Resonance in Periodic Structures

Award abstract, DMS-0505833, S Shipman, Louisiana State University

Title: Electromagnetic Resonance in Periodic Structures

The subject is motivated by the abundance of analytical problems
generated by interesting phenomena of scattering and resonance of
electromagnetic fields, which comprise a set of basic tools for the
design of photo-electronic devices. The driving phenomenon is the
existence of photonic frequency stop-bands for periodically structured
materials, called photonic crystals, which is the source of the
richness of their resonant behavior. One of the salient problems of current
interest is anomalous transmission of source fields through periodic
slabs near resonant frequencies, corresponding to weakly leaky guided
slab modes. The project addresses the mathematics of this and related
problems on several fronts: We use the complex-analytic theory of
boundary-integral operators to obtain asymptotic formulas for the
structure of transmission anomalies near non-robust slab modes; we
pursue a development of the spectral theory for general open systems,
such as leaky slabs, based on the concept of the unique conservative
extension of a dissipative system; and we investigate the existence
theory of modes and optimization of the associated resonant phenomena,
as well as efficient numerical schemes for their simulation.
Collaborators include S. Venakides, A. Figotin, D. Volkov, R. Lipton,
and O. Bruno.

Because of their capacity to block electromagnetic waves at selected
frequencies and to trap energy, photonic crystals have become a
subject of intense research in recent decades. Applications include
high-efficiency lasers and filters, waveguides, and directional
antennas. Engineering of these devices relies on precise tuning of
resonant frequencies, transmission-vs.-frequency profiles, and the
interaction of open electromagnetic resonators with their surrounding
medium. This project aims to set the theoretical framework of these
resonant phenomena on a solid mathematical footing. The central theme
is the frequency-response theory of open resonators, which provides
the framework for the guiding of light and other radiation by
structures, precise computation of the interaction of guided energy
with applied sources, and optimization of resonant properties.
Numerical computations and experimental results from the literature
will guide the theoretical investigations. The project involves an
undergraduate student and a graduate student as research assistants.
The undergraduate has been assisting the PI in numerical simulations
and will be part of a collaboration with the computational
electromagnetics group at Cal Tech. The graduate student will pursue
her Ph.D. on the subject of resonant scattering by periodic pillars.